International Colloquium on Paired and Interacting Galaxies,Tuscaloosa, Alabama, December 4-7, 1989

The University of Alabama will host Colloquium International Astronomical Union in December 1989. The meeting will be on "Paired and Interacting Galaxies". This will be the first international astronomical meeting at the University of Alabama and the first meeting focused on this topic in about 20 years. Over 150 participants form institutions around the world will be attending the meeting. This grant is for support to help defray travel expenses of invited speakers and junior astronomers attending the conference.